Stimulating SaTC Research Through PI Meeting

The NSF Secure and Trustworthy Cyberspace (SATC) program provides an opportunity for its principal investigators and the larger community of cyber security researchers to discuss the latest advances in cyber security, demonstrate technical accomplishments, and advise NSF on promising future research directions. This proposal defines a technical program agenda that highlights the contributions of the participating NSF directorates, and addresses the research themes, established in the OSTP Strategy for the Federal Cybersecurity Research and Development Program, especially including accelerating transition to practice, developing scientific foundations, and strengthening education and training in cyber security.